Dynamics and Control of Mechanical Systems

DMS-0103895

PI: Anthony M. Bloch

Dynamics and Control of Mechanical Systems

Abstract:

This is a proposal for the continuation and extension of the
proposer's research into the dynamics and control of nonlinear
mechanical systems in finite- and infinite-dimensions. In
particular, research is proposed in the following areas: integrable
dynamical systems in finite- and infinite- dimensions including both
Hamiltonian and nonholonomic systems, the stabilization and control of
nonlinear mechanical systems via energy methods and the extension of
these methods to systems with nonholonomic (nonintegrable) constraints,
the geometry of the smooth and discrete dynamics of rigid bodies, and
the control of quantum mechanical systems. A general area of interest
that encompasses several parts of this proposal is the relationship
between energy preservation and asymptotic behavior in dynamical systems
and between reversible and irreversible behavior. In the integrable
systems area the proposer is interested in the nonabelian Toda lattice,
infinite-dimensional generalizations of Toda, and generalized smooth
and discrete rigid body systems. Finally he intends to analyze the
dynamics and control of various coupled mechanical systems in both the
classical and quantum regimes.

This proposal is aimed at studying the behavior of various mechanical
systems that are important for applications in science and engineering.
These include systems such as wheeled or articulated robots, aerospace
systems, submarine vehicles, and quantum (microscopic) devices. Quantum
devices, where the laws of motion of atoms and molecules play a key role,
have become increasingly important in such areas as communication and
coding theory. In addition to studying the behavior of these systems
the proposer intends to analyze their control and optimal control --
that is, to provide methods for using such systems in engineering
applications in a practical, stable, and efficient manner. The proposer
intends to analyze various key examples of such mechanical systems with
mathematical structure which is particularly amenable to detailed
qualitative and quantitative analysis. Further, the proposer intends to
analyze the transition between the behavior of systems at the quantum
(microscopic) level and the large scale (macroscopic) level. This
transition is important for the application of physical devices in the
real world as well as interesting from the scientific point of view.